Phylogeny and Molecular Evolution of Leguminosae: Nodulation and Nodulin Gene Families

9420215 Doyle The ability to use atmospheric nitrogen, rather than more complex organic compounds, as a source of nitrogen is a hallmark of the legume family (Leguminosae, the "beans") and a major cause of its great economic and ecological importance. Nitrogen fixation is accomplished biochemically in partnership with soil bacteria ("rhizobia") which are housed in complex organs termed nodules, usually found on the roots of legumes. Among the novel features of nodules are a suite of proteins ("nodulins") produced by the plant predominantly or exclusively in that organ. The origins of many of the genes encoding many of these proteins are unknown; suggestions have included horizontal transfer, gene duplication, or simply recruitment of existing genes for novel purposes. Phylogenetic and taxonomic considerations suggest that nodulation originated more than once within the legume family of plants, yet the biochemical and structural complexity of the nodule might argue for a single origin followed by many independent losses of the ability to nodulate. Dr. Jeff Doyle of Cornell University is studying the origins of genes encoding nodulin proteins in order to test ideas about the number of evolutionary shifts in nitrogen fixation. Research focuses on glutamine synthetase, a protein with an important role in nitrogen transport, encoded by a gene family that has been studied in several crop legumes (soybean, alfalfa, garden bean) but has yet to be studied in legumes more phylogenetically distant from these. The major taxonomic focus is on legumes of the nodulating genus Chamaecrista and its non-nodulating close relative, Senna. Insights into the origins of nodulation in hitherto unstudied legumes should shed light on common mechanisms of gene evolution in this important plant physiological process. ??